RAPID: Field Test on Application of Microbial Calcite to Reduce Desertification

The main objective of this Rapid Research Award (RAPID) study is to identify the feasibility of using natural fibers and bio-degradable synthetic fibers in conjunction with microbial calcite to control airborne dusts caused by wind erosion through field tests. The long-term goal is to apply this technology for the reduction of the spread of global desertification that is being occurred in many parts around the world. The field tests are therefore planned to be conducted in desert environments, including two control sites, two sites with sand mixed with different amount of medium only without bacteria, two sites with sand mixed with different amount of medium containing bacteria, and four sites with sand mixed with different amount of medium containing bacteria and natural or bio-degradable synthetic fibers. Detailed field instrumentation will identify the weight loss per unit surface area of desert sand by measuring the average sand surface elevation change over a period of approximately four months. Relative effectiveness of utilizing medium, bacteria, and fibers will then be evaluated through a quantitative analysis of weight losses.

Dust suppression has been one of the most critical problems associated with construction earthwork, quarries, open pit mining, unpaved roads, landfills, etc. Currently available methods of dust suppression are predominantly chemical or mechanical. By virtue, they are known to be associated with certain health and environmental problems. Effective but safe dust control method will therefore have significant positive impacts in many ways. This study introduces a new, advanced and innovative approach for dust suppression that is environmentally safe and friendly. Eventually, the developed technology is expected to be used to reduce the spread of desertification that is currently being occurred in many parts around the world. Results of this study may also provide an important inroad for many difficult engineering problems that have challenged engineers, including the expedition of soil consolidation, improvement of extremely soft soils, reduction of soil permeability, containment of contaminated aquifers, etc., using bio-based geotechnology.